The Apparent 14C age of North Atlantic Surface Waters Duringthe Younger Dryas Climatic Event

The chronology and sequence of climatic changes during the deglaciation must be well constrained in order to understand the climatic system at that time. In order to achieve this goal it is necessary to acquire high precision AMS dates in both marine and continental sediments and to understand the distribution of 14C in the ocean. This project requests support to determine the apparent 14C age of surface waters in the North Atlantic during the Younger Dryas event of the last deglaciation. The PI will measure the radiocarbon ages of organic carbon and marine carbonate deposited coevally with Ash Layer 1 in North Atlantic deep sea sediments. By comparing their ages with Ash Layer 1, the PI will determine the apparent age of the surface water, which will provide important constraints on the circulation of the ocean during the deglaciation and constraints on the exchange of CO2 between the ocean and atmosphere.